Political Institutions, Government Spending and Economic Growth

9507648 Przeworksi This research investigation examines 1) whether political regimes--defined as democracy, autocracy, and bureaucracy--affect the aggregate economic size of governments, and 2) whether government size has consequences for economic performance, measured in terms of growth, consumption, investment, inflation, and population dynamics. The impact of different types of democratic institutions, mainly parliamentarism and presidentialism, is also distinguished The emphasis is placed on the objectives of governments and the mechanisms of accountability they face under different political institutions. Empirical predictions concerning the size of government and economic performance are derived from a formal model. These predictions are tested, using data for 139 countries between 1950 and 1990, by estimating the probability that incumbents lose office as a result of bad economic performance and by estimating equations which relate government size to economic performance. The analysis is conducted separately for each type of political institution, taking account of the fact that regimes are endogenous with regard to economic performance. The project will elucidate the impact of political institutions on the accountability of governments and on their economic behavior. In particular, it will assess whether democracy can be expected to generate better economic policies and better performance than different types of dictatorship and whether different democratic institutions affect policies and performance. These results have direct consequences for issues of institutional engineering, particularly applicable to new democracies. ***